Mathematical Sciences: Asymptotic Behaviour of Sequences of Random Variables and Applications

The principal investigator will be seeking to obtain a new central limit theorem for sequences of weak dependent random variables. Some of the results will have a theoretical character and will be a contribution to the clarification of some old problems. Other results will have rather a practical meaning. The focus of the study is the asymptotic distribution of partial sums of weakly dependent random variables normalized by estimators of the standard deviation of partial sums. These estimators will be easily computable from data.